Specification and Patterning of the Animal-Vegetal Axis

0110532
Wikramanayake

Depletion of nuclear beta-catenin in early sea urchin embryos affects the
fates of multiple cell lineages along the animal-vegetal (A/V) axis. It is
known that the micromeres, which form the early signaling center that
specifies mesendoderm, require nuclear beta-catenin to become competent to
carry out their inductive functions. Beta-catenin signaling is also
required in the veg2 lineage for these cells to respond to micromere
signals and to become specified as mesendoderm. Identifying
transcriptional targets of beta-catenin and elucidating their functions
would be a critical step in defining the molecular basis of mesendoderm
specification. This proposal will focus on SUWnt8, a nuclear
beta-catenin-sensitive Wnt gene that is activated in the micromeres
coincident with the entry of beta-catenin into the nuclei of these cells
and in the veg2 tier shortly after transit of beta-catenin into the nuclei
of this cell tier. Four proposed specific aims will define the function of
SUWnt8 in these cell lineages and will further the understanding of
mesendoderm specification in the sea urchin embryo. These aims are: (1) To
determine the role of cell interactions in regulating early SUWnt8
expression in the mesendoderm domain. This will provide insight into the
relative roles of cell autonomous and non cell-autonomous mechanisms in
early mesendoderm specification. (2) To determine how SUWnt8 participates
in early mesendoderm specification by elucidating its role in the
micromeres and the veg2 tier by blocking its activity using morpholino
antisense oligonucleotide-mediated translational inhibition. Additionally,
a possible role for SUWnt8 in maintaining nuclear beta-catenin levels in
vegetal cells and in suppressing the activity of animalizing transcription
factors in vegetal cells will be determined. (3) While nuclear
beta-catenin is required for normal mesendoderm specification, there is
evidence that micromeres can induce mesendoderm in animal half blastomeres
in the absence of detectable nuclear beta-catenin. It will be determined
if SUWnt8 can signal through the planar cell polarity pathway via the
Disheveled protein to participate in mesendoderm specification in parallel
with the beta-catenin pathway. (4) The unique expression pattern of SUWnt8
makes it a powerful reagent for studying the transcriptional basis of
mesendoderm specification. The trans-acting factors that mediate SUWnt8
expression in the micromeres and the veg2 tier will be identified.
Together, these studies will further our understanding of how the sea
urchin A/V axis is specified and patterned and may provide insight into
the evolution of the A/V axis in bilaterians.